A National EPSCoR Cyberinfrastructure Student Engagement Program

Proposal Number: EPS-1132168

Title: A National EPSCoR Cyberinfrastructure Student Engagement Program

Institution: Clemson University

This proposal seeks to engage and prepare more undergraduate and graduate students from EPSCoR institutions in the use of computing to advance science, engineering, and scholarly studies. In addition, the project seeks to establish and build on relationships between students and mentors to assist in the retention of students in CI activities and studies. The proposal notes the need of “a comprehensive plan for education and outreach in computational science to support learning and workforce development” presented in the NSF’s Cyberinfrastructure Framework for 21st Century Science and Engineering seeks and thus, seeks to develop student oriented education, outreach, and training programs that support, utilize and advance the CI ecosystem. A key component of the proposal is the goal to establish a strong CI presence of a more diverse undergraduate and graduate cadre of students within EPSCoR jurisdictions.

Intellectual Merit: The intellectual merit centers on the creation of a student CI engagement program across EPSCoR jurisdictions designed around workforce development to meet 21st century CI needs. This includes proposed efforts to expand the awareness of, ability to deploy, and access to CI resources and services locally, regionally, and nationally.
Broader Impacts: Enabling a diverse cohort of students from EPSCoR jurisdictions to join the national CI ecosystem as users, champions, and mentors through CI outreach, education, and training addresses a national priority of developing the CI savvy workforce needed to address 21st century challenges. By modeling the education and training successes of Campus CI Champion programs in several EPSCoR jurisdictions, the proposers seek to build a national framework to increase the number and diversity of undergraduate and graduate students within EPSCoR jurisdictions who are prepared CI practitioners and mentors.